Expanded Scanning Electron Microscopy Instruction for Undergraduates

Students in an ongoing course are introduced to the full range of capabilities of a modern scanning electron microscope and students in the minerology and petrology courses learn of these capabilities through several laboratory exercises. In a new course, students receive hands- on experience with state-of-the-art equipment through extensive labortory work. Their level of background in areas of transmission electron microscopy and scanning electron microscopy enable the students to present more favorable credentials to prospective employers. Further, students have the technical capabilities that allow them to pursue goals in either graduate school or medical school research. The grantee provides funds for this project that more than match the NSF award.